Periodic Invasion of Mafic Magma into an Evolving Magma Chamber: Isle au Haut Igneous Complex, Maine

The principal investigator will continue his study of the granite- diorite-gabbro complex on the Isle au Haut, Maine, utilizing field, petrographic, geochemical, and isotopic techniques. Results will be used to understand a variety of processes that operate during the development of igneous plutons and to test models of magmatic evolution.